Collaborative Research: CSR: Understanding and Addressing Metastable Failures

This project studies metastable failures, a surprising kind of failure in large computer systems. Normally, when something goes wrong, such as a short burst of heavy use or a small fault, fixing the problem allows the system to return to normal. Sometimes, however, the system does not recover. Instead, some of its parts begin to interact in ways that make things worse, creating a cycle where slowdowns feed on each other. Even after the original problem is gone, this cycle can keep the system stuck in a degraded state. Understanding and breaking these self-sustaining cycles is the main goal of this project.

The research develops a unified framework for addressing metastable failures in large scale distributed systems by exploring three tightly integrated thrusts. The first thrust establishes formal models, definitions, and empirical foundations that explain how feedback loops among components lead to persistent degradation. The second thrust designs detection and mitigation primitives, including visualization techniques, reduced system representations, formal logic, and verification methods that enable rigorous reasoning about metastability. The third thrust focuses on scalability by extracting predictive models from logs and telemetry, identifying vulnerable states, generating triggering conditions, and validating the approach on realistic workloads.

The project strengthens the reliability of critical digital infrastructure that supports cloud computing, online commerce, financial services, and social platforms. By enabling earlier detection and prevention of persistent self-sustaining failures, it directly reduces prolonged outages, economic losses, and disruptions to essential services. The work also delivers open-source tools, datasets, and benchmarks that make these advances accessible to both researchers and practitioners. Educational materials and training activities prepare students in systems modeling, formal reasoning, and large-scale infrastructure. These outcomes help ensure that the complex systems society depends on remain stable, responsive, and trustworthy even under stress.